MRI: Development of Brain Tissue Scanner

EIA-0079874
McCormick, Bruce H.
The Texas A&M University System-HSC Research Foundation

MRI: Development of Brain Tissue Scanner

The proposed study is a pilot study for imaging the microstructure of brain tissue to visualize brain development and connectivity. The brain tissue scanner, a new instrument for mapping brain microstructure, will be developed for the rapid and massive data acquisition necessary to investigate cytoarchitectural developmental patterns of mammalian brain. Volume scanning rates of 1 teravoxel/day are anticipated.